Disseration Research: Collective Action and Common PropertyResources in Andean Agro-Pastoral Production

This dissertation research will allow a cultural anthropologist to study how cooperative ideologies and political entrepreneurs function in agro-pastoral communities in the Andes mountains of Peru. The theory to be addressed deals with collective action on common property, and the focus of the research is to see how individual decision making yields cooperative collective outcomes. Methods include participant observation, agricultural surveys, key informant interviewing, participant-observation of work groups, and household surveys. This research is important because simplistic models of the "tragedy of the commons" have been widely publicized, and have led to an erroneous understanding of how actual commons are managed by real communities. Studies of the actual collective management of common property will give models for understanding how to sustain environmental processes in controlled access common property.